CAREER: Knowledge-Rich Neural Text Comprehension and Reasoning

Enormous amounts of ever-changing knowledge are available online in diverse textual styles (e.g., news vs. science text) and diverse formats (knowledge bases vs. web pages vs. textual documents). This proposal addresses the question of textual comprehension and reasoning given this diversity: how can artificial intelligence (AI) help applications comprehend and combine evidence from variable, evolving sources of textual knowledge to make complex inferences and draw logical conclusions? Recent advances in deep learning algorithms, large-scale datasets, and industry-scale computational resources are spurring progress in many Natural Language Processing (NLP) tasks, including question answering. Nevertheless, current models lack the ability to answer complex questions that require them to reason intelligently across diverse sources and explain their decisions. Further, these models cannot scale up when task-annotated training data are scarce and computational resources are limited. Our results will give rise to the next generation of question answering and fact checking algorithms that offer rich natural language comprehension using multi-hop and interpretable reasoning even when annotated training data is scarce.

With a focus on textual comprehension and reasoning, this research will integrate capabilities of symbolic AI approaches into current deep learning algorithms. It will devise hybrid, interpretable algorithms that understand and reason about textual knowledge across varied formats and styles, generalize to emerging domains with scarce training data (are robust), and operate efficiently under resource limitations (are scalable). Toward this end, this research will focus on four transformative research initiatives: (1) defining a general-purpose formalism to promote data comprehension through knowledge-rich neural representations, (2) devising an interpretable, multi-hop inference and reasoning engine, (3) developing robust and scalable algorithms to demonstrate generalizable domain and device adaptation, and (4) building applications and datasets in question answering and fact checking tasks that will have lasting general-purpose utility.